Educational Supplement: Adding Breadth and Laboratories to the Introductory Computer Science Courses; Workshop: Washington, DC on May 10-11, 1993.

The project is a collaborative effort between Clemson University, Bowdoin College and University of Connecticut to investigate two modifications to the first two years of the undergraduate computer science curriculum. The first modification broadens the focus of these courses from primarily software development techniques to consider the breadth of the computer science discipline. The second change blends the use of scheduled, structured laboratories with the traditional lecture approach. This approach follows the recent ACM '91 curriculum recommendations. Project activities will include the development and class-testing of lecture and text materials, and laboratory materials. The laboratory exercises will be developed for a variety of educational settings. The results of the curriculum and materials development will be disseminated through summer workshops, publications, and presentations at professional meetings.